A Grammar of West Greenlandic

The goal of this project is to produce an extensive grammar of West-Greenlandic Eskimo. The grammar will contain technical and non-technical descriptions to suit the needs of both linguists and Native speakers. This research will serve as a basis for the production of manuals for related languages in Greenland, Canada, Alaska and Siberia and contribute to the preservation and revitalization of Native languages and cultures throughout the Arctic.